5th WORKSHOP ON MATHEMATICAL FOUNDATION OF PROGRAMMING SEMANTICS

The mathematical foundations of programming semantics involves the application of such areas as formal logic, abstract algebra, domain theory, lattice theory, topology and category theory to formal modeling and reasoning about programs. This award provides partial support for the fifth in a series of workshops on this subject, with the goal of bringing together computer scientists and mathematicians in this area. The previous workshops have been distinguished by the breadth of interests of the participants and by the high-level of interaction which has taken place between researchers representing the diverse areas mentioned. The proposed workshop includes three types of formal activities: (1) invited talks by six leading researchers, (2) shorter presentations of refereed papers, and (3) seminars on research directions. In addition, it is expected that the proceedings of the workshop will be published as a volume in the Lecture Notes in Computer Science, as was the case with the 1st and 3rd workshops.